CAREER: Geometry Algorithms for Sensor Data and Shape Representation

New technology for capturing shape data from the real world
requires new algorithms to interpret and use it. Building on
new ideas about reconstructing a surface from a set of
points in three-dimensional space, we consider algorithms
for computing different shape representations, and for
aligning point sets to each other. We look for simple,
effective yet provably correct algorithms, using tools from
computational geometry but drawing on the huge body of
previous work in computer vision and graphics. This work
complements our teaching in graphics and algorithms, and
helps us train graduate students in research.